Acquisition of a Spectrophotometric Facility Covering 185 nm(54,000 cm -1 to 2.5 um (400 cm -1)

This award provides support for a spectrophotometric facility which will enhance the capabilities of several groups carrying out materials research in the Department of Physics at Oklahoma State University. The specific instruments involved are a dual- beam ultraviolet/visible/near-infrared spectrophotometer and a Fourier transform infrared spectrophotometer. The related research work includes research into new laser materials, electro-optic materials, piezoelectric materials and dosimetric materials.